REU Site: Secure, Robust, and Resilient AI-enabled System Engineering

Artificial intelligence (AI) has gained significant attention in recent years as an enabler of technologies such as autonomous cyber-physical systems and cybersecurity. This funding establishes a new Research Experiences for Undergraduates (REU) Site at the University of Massachusetts Dartmouth with a focus on secure, robust, and resilient AI-enabled system engineering. In each summer, ten undergraduate students will participate in research for ten weeks. During the research, participants will learn engineering principles to support the rigorous design and quantitative test of systems and incorporate AI components to ensure properties such as security, robustness, and resilience. This program will provide a research experience with a balance of theory, hands-on practical skills, and applications. The project is led by a team of experienced faculty who will mentor the participating researchers through a number of professional development activities, which prepare them to take a systems perspective while maintaining technical excellence to enhance the robustness of AI-enabled systems in commercial and societal contexts. This project will provide unique opportunities for undergraduate students, especially for those from underrepresented and minority groups and institutions with limited research resources, to participate in real-world research.

Artificial intelligence has gained significant attention in recent years as an enabler of technologies such as autonomous cyber physical systems and cyber security. However, engineering principles to support the rigorous design and quantitative test of systems incorporating AI components are needed to ensure properties such as security, robustness, and resilience. AI system engineering research will provide the foundation required to establish user trust and promote regulatory activities such as safety assurance. To enable to the promise of AI systems, this project proposes a unique Research Experiences for Undergraduates (REU) Site focused on secure, robust, and resilient AI-enabled system engineering. This REU Site will intertwine AI research with cybersecurity and systems engineering in a portfolio of synergistic projects. Ten undergraduate students will be engaged in a ten-week summer research program to conduct research at the University of Massachusetts Dartmouth (UMD). The themes of the proposed REU Site are AI, cybersecurity, and system engineering research and their combined implications. Specifically, the following research topics will be explored: (1) cyber attacks that degrade the performance of AI algorithms; (2) AI-enabled cybersecurity against malicious actors; (3) resilient AI-enabled system engineering methods. These research themes will create opportunities for multidisciplinary knowledge sharing between AI and cybersecurity from software, hardware and system engineering perspectives, including topics in biometrics, UAVs, brain computer interaction, and signal processing. The REU will prepare talented young researchers to take a systems perspective, while maintaining technical excellence to enhance the robustness of AI-enabled systems in commercial and societal contexts. The site will provide unique opportunities for undergraduate students, especially for those from underrepresented and minority groups and institutions with limited research resources, to participate in real-world research.